U.S.-Chile Program: Workshop on New Directions for Stochastic Processes, to be held in Valparaiso, Chile, November 20-24, 1995

9505633 Carriquiry This U.S.-Chile Program award will fund travel and related expenses for twelve U.S. scientists and two U.S. graduate students, to participate in a workshop on probability and statistics, to be held in Valparaiso, Chile, on November 1995. Also, partially funded by this award will be four Latin American participants from Uruguay and Colombia. Organizers are Dr. Alicia Carriquiry, Iowa State University, Ames, and Dr. Servet Martinez, Universidad de Chile. The workshop will bring together active researchers from Latin America with colleagues from the U.S. and Europe. Topics to be discussed will range from prequential analysis, stochastic search model selection and stochastic processes for spatial variability, to infinite particle systems and quantum probability theory. U.S. speakers are leading researchers in the area of modeling, estimation and analysis in stochastic processes, and have contributed extensively to the field. The main objectives of the workshop are to facilitate the exchange of recent research developments in the field and to promote international scientific cooperation by identifying common research areas for the participants. A significant feature of the conference will be the active participation of young U.S. and Latin American researchers. ***